Hot Quarks 2004 - a Workshop on the Physics of Ultrarelativistic Nucleus-Nucleus Collisions for Young Scientists

The Hot Quarks 2004 Workshop will take place on July 18-24, 2004
in Taos, NM. The main topic of the workshop is the physics
of strongly interacting nuclear matter at extreme energy densities.
Quantum Chromo-Dynamics, the theory describing the forces acting
within atomic nuclei, predicts that at sufficiently
high temperatures and/or densities, matter should undergo a
transition from the standard hadronic phase to a plasma of
deconfined quarks and gluons (Quark Gluon Plasma, QGP) - a
transition which, according to our cosmological models,
took place in the early universe about 10 microseconds after the Big
Bang.

Already the programs at the Brookhaven National Laboratory
Alternating Gradient Synchrotron (AGS) and the CERN Super Proton
Synchrotron (SPS) have produced evidence for the onset of new
phenomena. The research in this field is now successfully
continuing at the Relativistic Heavy-Ion Collider (RHIC) at BNL
while the next phase, to take place at the CERN Large Hadron
Collider (LHC), is under preparation. There are around 2000
physicists worldwide working in the field: a very active
and lively, expanding community. In such a context, good
communication and networking, especially among the young and
productive members in the field, are vital.

The aim of this particular workshop is to enhance the direct
exchange of scientific information among the younger
members of the community (graduate students, postdocs and
junior faculty), both from the experiment and theory.
Participation in the workshop will be by invitation
only - in order to strengthen the emphasis on younger members
of the community, participation will be restricted to people
who have obtained their Ph.D. no earlier than 1989.

This particular approach makes the workshop unique among the
various workshops and conferences in the field.
For young scientists it represents an opportunity
for exchange and exposure that that they would not have in one of
the major big conferences. It will help to stimulate
the next generation of the field and strengthen their sense
of community.